Conference: Linear algebraic groups and cohomology

This grant provides support for the conference "Linear algebraic
groups and cohomology" held at Emory University during 16-20 May
2007. The subject of the conference is linear algebraic groups over
a general ground field.

Some main themes of the conference are cohomological invariants;
numerical invariants of torsors; rational points on homogeneous
spaces; division algebras over surfaces and ramification data; and
Chow groups and motivic decomposition. There is an ongoing explosion
of results on these topics stemming from applications of new methods
from algebraic geometry.

This conference builds on a series of previous successful conferences
in Europe. It will provide a convenient forum for US persons to
attend a conference of a type that would normally demand
international travel.

More information about the conference can be found on the conference
website at
http://www.mathcs.emory.edu/~skip/LAGC07